US-Oman Workshop: Tri-Lateral Workshop on the Productivity of the Oman Upwelling Zone (POUZ)

ABSTRACT

OCE-0082714

The Oman Upwelling Zone is one of the most physically complex and economically important regions of the Arabian Sea. Although significant progress in understanding the physical, chemical, and biological dynamics of the broader region was achieved during the international Joint Global Ocean Flux Study (JGOFS), the limited resources available had to be expended on achieving an general understanding of the biogeochemistry of the greater Arabian Sea itself. The purpose of this award is to support a joint seminar and workshop on the Omani Upwelling Zone involving investigators from the United States, Oman, and India. The participants will synthesize an up-to-date picture of the state of knowledge about the Upwelling and then work to prioritize research imperatives for the future. A workshop report will be published and disseminated.